Travel: SODA 2025 Conference Student Travel Support

The Association for Computing Machinery (ACM) - Society for Industrial an Applied Mathematics (SIAM) Symposium on Discrete Algorithms (SODA) is one of the premier annual research conferences that cover the breadth of theoretical computer science. It is a conference of very long standing that has continued to play a formative role in the field; it is also at the leading edge of connections made to other areas. This project aims to increase the impact of this conference on students and postdoctoral researchers, particularly those from under-represented groups, by encouraging and enabling their participation, especially in cases where travel expenses and conference fees would otherwise preclude their attendance.

Concretely, this project assists US-based students and postdoctoral fellows in attending the 2025 Annual SODA conference, sponsored by the ACM and SIAM. The coming SODA will take place in New Orleans, Louisiana, January 12-15, 2025. The project plans to support 26 students in attending this conference. It is planned to select the students in such a way that the group of students attending these top-rank research conferences is broadened. By this the impact of Algorithms Research, as well as the participation in Algorithms Research, will increase.